RUI: Implementation and Analysis of Inference Techniques for Classical and Multiple-Valued Logics

This project is for research in computational logic. The areas of research stem directly from prior analysis of the structure of formulas in negation normal form. That work raised many questions and led to explorations in several directions. Substantial experimental results at the propositional level, preliminary experimental results at the first order level, and certain theoretical results indicate that the most important of these may be path dissolution, a rule of inference that is strongly complete at the ground level. This project will continue exploration of this and related inference mechanisms, largely through experimentation. One major thrust will be to further the implementation of the techniques developed earlier. The current first order system ("Dissolver") is a solid platform on which the techniques proposed below can be tested: link selection; computing prime implicants; backtracking; theory links and dissolution; and star chains. While abstract proof-theoretic questions are of interest in their own right, enhancing the performance of Dissolver is an important motivation for the theoretical work in this project. The planned investigations into multiple-valued logics largely fit the former category; the expectation is that the study of the following issues will contribute to the development of Dissolver: dissolution and multiple-valued logics; dissolution, analytic tableaux, and the distributive law; quantifier duplication, proof length, and cycles; algorithms for computing prime implicants; and induction and equality.